Optical Emission from Silicon

This effort pertains to the question of light emission from impurties in silicon. Should it be possible to obtain coherent light emission, a great impact would be felt in the optical and electronics field. This is particularly true with the recent effort directed toward the utilization of light to send signals from one part of a silicon chip to another.